Fundamentals of Embedded Optical Fibers in Structural Concrete

This project will investigate the use of optical fibers placed in concrete during the fabrication process or on the surface of existing structures in order to measure the strain movement. With this data it will be possible to determine the condition of the material and the overall safety of the structure.